Most-Probable-State Analysis: A Macro Statistical Approach to Testing Probabilistic Theories of Spatial Behavior

Most-probable-state (MPS) analysis is a technique for estimating general characteristics of large populations divided into regional and local component groups. MPS is a means of analyzing and forecasting movements among regional and local units and therefore of making regional population forecasts. Professor Smith has been conducting research on developing and refining MPS analysis with Foundation support. This award will support research on further extensions of the technique and on elaboration of its applications. MPS offers the potential for unifying the theoretical basis for modelling spatial interactions among regions and places. The applications of such a unification would result in improved techniques for measuring and analyzing spatial interactions of all kinds, but especially those that bear upon regional changes in population and employment.